Robust Architecture-Physical Power Delivery Co-Design Methodology and Algorithm

The goal of this research is to develop a comprehensive co-design methodology, including algorithms and tools to facilitate the simultaneous power, noise margin, signal integrity, and power economy design with few, if any, design iterations.

The key objectives are:

1. Develop novel hierarchical, efficient, distributed and accurate system-level power delivery RLS models and analysis tools to evaluate power reduction and noise-immune design techniques for power delivery.

2. Develop efficient power and area estimation algorithms at the architecture level and at the physical design level.